U.S.-Australia Joint Seminar: Remote Sensing of Biosphere Functioning / Honolulu, Hawaii / July 1988

This award will support the participation of eight U.S. scientists in a seminar on the "Remote Sensing of Biosphere Functioning," organized jointly by Dr. Harold A. Mooney of Stanford University and Dr. Richard J. Hobbs of the Australian CSIRO Division of Wildlife and Rangelands Research. United States and Australian participants will meet at the East-West Center in Honolulu, Hawaii during July 1988. The seminar will address how remote sensing technology can be used to make coordinated measurements on a global scale of various physical, chemical and biological parameters. Discussions will focus on the capabilities of remote sensing hardware, the assessment of physical, chemical, and biological parameters based on remotely sensed reflectance data, the ability to quantify processes such as photosynthesis, decomposition and species succession, data handling requirements, and the types of experiments needed to relate ground based and remotely sensed measurements. The United States and Australia are both leaders in the development and utilization of remote sensing technology. Australian scientists, faced with understanding and managing vast landscape units, have pioneered in the development of remote sensing technology to meet this challenge. The United States, through its large space program, has fostered extensive new technology for remote sensing of features of the earth's surface. This seminar will take advantage of this expertise in identifying the requirements for a remote and continuous monitoring of the functioning of the earth's biosphere.